Co-Sponsorhip for International Conference on Computer Methods and Advances in Geomechanics

The objective of this conference is to bring researchers and practitioners engaged in the solution of complex problems in geomechanics to present and discuss their research and experience to define the state of the art in Computer Methods and Advances in Geomechanics. The conference will provide an opportunity to share technological advances made all over the world, and serve as the vehicle for technology transfer to engineering practice.